Studies of Numerical Weather Prediction Related to Monsoons,Award in Indian Currency

Objectives and Relevancy; This project supports cooperative research between Dr.Gyan Mohan of the Indian Institute of Technology, Kanpor, India, and Dr. T.N. Krishnamurti of Florida State University. The research would continue work started in 1983 on numerical weather prediction , and observational and theoretical studies for understanding the basic physics of the monsoon dynamics. The project will continue work on simple and multi-level grid point models, as well as the global spectral model. It will include examination of the results of the observational analyses, and how they agree with existing theoretical work in the field on the phenomena of monsoon depressions, atmospheric waves, orographic effects. The U.S.-India program supports cooperative projects in areas where capabilities complement each other and where the research topic is of interest to both countries. This project meets these criteria. Merit: The U.S. and Indian scientists are capable researchers who have produced significant publications under their previous grants. They have accomplished significant scientific results in helping Indian scientists better model weather conditions on the national scale and for contribution to the global weather understanding. This project is clearly of interest to the Government of India as well as to U.S. atmospheric scientists. Funding: This project is being funded under two grants: Indian Inst. of Tech. Kanpur, INT-8713957: FY87: $81,250 FY88: $46,094 Florida State University, INT-8713958 FY87: $29,688 FY88: $29,687 All funds are in Indian currency.